Planning Proposal for School/Science Center Partnerships Initiative

Proposal No. ESIE 9354092 Proposal Name: PLANNING PROPOSAL FOR SCHOOL/SCIENCE CENTER PARTNERSHIPS INITIATIVE PI: Judith Vecchione ABSTRACT The Association of Science Technology Centers (ASTC) will plan a multi-year initiative to build the capacity of science to facilitate the implementation of school/science center partnerships. ASTC'S intention is to organize a network a "learning communities" in five prominent interest areas, identified by the field, to help science museums focus more effectively on school science education, and develop close collaboration with schools to influence systemic change. During the planning phase, ASTC will: Organize and convene a national advisory committee Develop a position paper to inform and engage the field for school/science center collaboration. Identify leadership institutions and their partners among school systems, and form a core group of facilities and personnel for the leaning communities. Investigate needs in existing practices and develop an appropriate range of resources, services, and activities. Determine priorities for phased implementation of learning communities and related program activities. Conduct research to identify useful techniques and approaches for program documentation, research, and evaluation.